Routing and Peering Analysis for Enhancing Internet Performance and Security

This project proposes an investigation of the performance and continued viability of BGP system, including development of new techniques for correlating massive volumes of routing and topology data and tools to support modeling and prediction of routing behavior. The research will include evaluation of incongruity between topology and articulated routing policy, and modeling of peering policy dynamics.